HCC: Small: An Analytical Framework for Provenance-Rich Social Knowledge Collection

This project will investigate a new generation of provenance-rich social knowledge collection systems that will greatly improve the ability of people to create online communities of interest and share information. The research will transform the state of the art in social content collection in several important ways. First, social knowledge collection systems will be augmented to support contributors to structure factual content, so that information can be aggregated to answer reasonably interesting albeit simple factual queries. We will build on a semantic wiki framework to allow users to create structured factual content as object-property-value triples. It will not assume pre-defined ontologies, but rather develop algorithms that analyze current content and suggest opportunities for structuring contributions so they can be aggregated to answer simple queries. Second, they will include detailed provenance records that reflect how the content was created, allowing contributors to enter alternative viewpoints and enabling consumers to make quality and trust judgments. The research will include developing algorithms that derive trust metrics from the provenance records, and to allow users to define views on the content based on provenance criteria. It will create novel approaches to propagate trust across content topics and categories and complement existing algorithms that propagate trust in social networks. Third, the systems will proactively guide contributors to invest effort where it is most needed, developing novel algorithms to detect knowledge gaps, and by allowing users to define queries that will be used to drive further contributions.

This work has the potential for a broader impact in many areas where social content collection is already widely used, not only in scientific communities but also for societal issues, such as citizen participation in local communities, health, and governance. All these communities would benefit from further structure, provenance models, and guided knowledge collection. Despite their popularity, social content collection sites currently have important limitations. First, because the content has very little structure they cannot aggregate information and answer many simple questions. Second, contributors have uneven expertise and skills and therefore the content is of very varying quality, yet there is no assistance for consumers to tell apart the valuable from the dubious. Third, these sites depend on the initiative of contributors to figure out how the content needs to grow, and there is no systematic analysis to expose knowledge gaps and guide contributors proactively. This research project addresses all three of those issues.